TC: Small: Runtime and Static Analysis for Web Application Security

Web applications are prevalent and enable much of today's online
business including banking, shopping, university admissions, and various
governmental activities. However, the quality of such applications is
usually low, and they are increasingly popular targets for attack. This
project aims at developing practical testing and analysis mechanisms and
tools to secure web applications. In particular, it focuses on
developing novel, principled techniques to address the following
research issues: (1) how to formalize security threats in web
applications; (2) how to provide runtime security for deployed
applications via dynamic monitoring; and (3) how to provide static
security enforcement during application development and testing.

The project is interdisciplinary, touching upon a number of requisite
areas including computer security, software engineering, and programming
languages. It has the potential to advance knowledge in each of these
disciplines with novel formulations of security requirements, systems
concepts, and advanced testing and analysis techniques. The project
also has the potential for significant industrial and societal impact.
Through the proposed research, education, and outreach activities, the
project will empower web application developers with the knowledge,
methodologies, and development tools to build secure web
applications. Testing and analysis tools developed in the project will
also be distributed to other institutions and the industry for teaching,
research, and experimental evaluation.